Minority Postdoctoral Research Fellowship

9406858 ARROYO This three-year plan of postdoctoral study will allow Dr. Arroyo the opportunity to obtain training in archaeometric research techniques in the archaeometry laboratory at the Missouri University Research Reactor (MURR). The techniques learned at MURR will be applied to data that will be recovered on a regional survey on the Pacific coast of Guatemala. The research will integrate different lines of technical investigations previously done as well as information from the field survey and excavations. Research areas will include the origins of the early formative pottery assemblage, dating of the early formative assemblage, middle formative occupation, and cultural evolution of the region. One of the research focusses of archaeometry is the development of ceramic production and exchange. An important contribution of the field is the establishment of linkages between the physical properties of objects and human behavior. Variation in the physical states of artifacts may be evaluated to understand prehispanic cultural evolution.